Gulf Stream Air-Sea Interactions during Winter

In this project, the P.I. will continue studies of wintertime air- sea interaction processes over the Gulf Stream. Data were collected during the winter season from January to March, 1986, as part of an interdisciplinary project called the Genesis of Atlantic Lows Experiment (GALE). Measurements of heat, moisture, and momentum fluxes were made simultaneously with measurements of ocean temperature structure. Specific objectives of this project will be: 1. investigate variability in air-sea interaction over the entire period; 2. Study the heat budget of the Gulf Stream during strong wintertime atmospheric cooling events; 3. Adapt the Oey model from the shelf region to include the Gulf Stream; and, 4. Complete the intercomparison of data obtained from the NOAA P-3 and the NCAR Electra aircraft during an intercomparison flight.